Long-Term Performance of GCLs Permeated with Aqueous Inorganic Solutions

Abstract
9820863

"Long-term Performance of GCLs: Permeated with Aqueous Inorganic Solutions"
Shackelford, Charles
Colorado State University

Long-Term Performance of GCLs Permeated with Aqueous Inorganic Solutions
Geosynthetic clay liners (GCLs) are factory-manufactured hydraulic barriers
consisting of a thin layer of bentonite (~ 5.0 kg/m2) sandwiched between
two geotextiles or bonded to a geomembrane. Since 1992, GCLs have been used
widely in hydraulic containment applications because of their relatively
low cost and very low hydraulic conductivity to water (k 10E-8 cm/s).
However, most applications using GCLs involve the containment of chemical
solutions that may be incompatible with the bentonite portion of the GCLs,
and the results of most hydraulic conductivity tests on GCLs are performed
over relatively short test durations (e.g., 6 mos.). As a result, the
primary objective of this study, a joint effort between Colorado State
University (CSU) and the University of Wisconsin at Madison (UWM), is to
evaluate the long-term performance of geosynthetic clay liners (GCLs)
permeated with aqueous inorganic solutions over test durations ranging from
6 mos. to 3 yrs. Physical, hydraulic, and mechanical properties of the GCLs
both before and after exposure to permeation with distilled water and salt
solutions will be determined. The research will include tests to evaluate
the long-term hydraulic conductivity, swell, shear strength, and diffusion
properties of GCLs. In addition, an exchange program between CSU and UWM
will be established based for both educational and research dissemination
purposes. The results of this study will advance our understanding of the
long-term behavior of GCLs, and should impact the design of waste
containment systems involving GCLs.